Minority Postdoctoral Research Fellowship

This applicant plans to study the occurrence and mechanism of negative regulation of cellular functions by the formation of steroid receptor heterodimers. Negative interactions of progesterone on estrogen-induced functions will be used as the model system. The work is planned to take place in the laboratory of Dr. Jan-Ake Gustafsson at the Karolinska Institute.